University-Industry Cooperative Research Programs in the Mathematical Sciences: Electrical and Magnetic Properties ofComposite Materials

9629692 Milton The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematical scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Industry Postdoctoral Research Fellowships provide two years of support for recent recipients of doctoral degrees in the mathematical sciences. These awards are a means of contributing to the future vitality of the scientific effort of the nation. The postdoctoral fellow will work closely with scientific advisors from both academia and industry. The postdoctoral fellow, David J. Eyre, will work under the direction of Joseph V. Mantese at General Motors and Graeme Walter Milton at the University of Utah. The research involves the study of electrical and magnetic properties of composite materials. The mathematics includes development and use of numerical methods to compute bounds on some of the complex properties of the materials.